Studies of Structure Formation in the Early Universe (Physics)

This project will focus on three complementary issues in the study of galaxy formation in the universe through nonlinear gravitational collapse. First, the Lagrangian fluid method based on the velocity gradient and gravity gradient tensors will be used to analytically study the nonlinear evolution of density perturbations in several models including the effects of shears and tides during the collapse. Second, N-body simulation codes will be used to test the approximation schemes used in the analytical studies and to extend the above analytical Langrangian fluid method to more realistic systems. Third, the theoretical understandings gained concerning gravitational collapse including the effects of shears and tides will be combined with current observational data to constrain or exclude competing models of dark matter in the universe. Interactive activities include: teaching a graduate special topics course in astrophysics; guest lecturing on aspects of particle astrophysics in introductory and advanced physics courses at the undergraduate level; hosting regular lunches to promote informal interaction and develop a sense of community among women faculty and women physics major; and meeting informally with a campus group interested in space exploration.